Mathematical Sciences: Computational Methods in Algebraic Geometry and Topology

This research is concerned with computational research in algebraic geometry and topology. The principal investigator will study Newton's method for solving polynomial equations describing arbitrary zero locii, paying particular attention to the case where the number of equations exceeds the codimension. He will also study algorithms for producing topological data of a combinatorial nature from such equations, and the question of recognizing computationally when two such topological descriptions agree. In addition, he will research an extension of the Groebner basis algorithm to the real numbers, for algebraically manipulating polynomial equations. Finally, he will consider the Jacobian Conjecture. This is research in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origins, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays, the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields, as well as, in theoretically computer science and robotics.